Extension of the Puerto Rico Resource Center for Science andEngineering: Comprehensive Summer Training for Elementary and Secondary School Teachers

The University of Puerto Rico Resource Center for Science and Engineering will conduct four summer workshops for elementary, intermediate, and secondary teachers. Each workshop will provide instruction for forty teachers. The workshops to be conducted are: I. Teaching Science in the Elementary School II. Teaching Mathematics in the Elementary School III. Teaching Science at the Intermediate School Level IV. Teaching Mathematics for Intermediate and High School Teachers There will be 8 follow-up sessions on Saturdays during the academic year for each workshop. The workshops will be conducted in two locations simultaneously: Rio Piedras and Mayaguez campuses. Half of the participants will be instructed on each campus during the summer and academic year phase of the program. The primary goals of this project are to provide teachers with new content, methodology, and a more effectives instructional program for their students. Emphasis will be placed on the interdisciplinary nature of bodies of knowledge. Teachers who are participants in this project will be encouraged to share their new knowledge with other teachers in their schools.